Student Travel Sponsorship for the 2010 International Green Computing Conference

The goal of this proposal is to seek funding for travel support for students to participate in the International Green Computing Conference (IGCC), August 2010. In particular, non-author students who may not have an opportunity to attend the conference will be supported by this travel grant.